Membrane Transport: Biology/History/Philosophy

Professor Robinson is studying a mainstream area of biological research in order to describe better the course of biology's development and to analyze the issues involved in the workings of experimental science. In order to carry out this research, he has selected case studies that represent experimental approaches to determining the mechanisms responsible (i) for creating the asymmetric distribution of Na+ and K+ between cells and their environments and (ii) for linking the oxidation of nutrients to the production of ATP by the cell mitochondria. These inquires converged in formulations of active transport across biological membranes, and led to the recognition of ATP-utilizing enzymes that create ion gradients, ATP-synthesizing enzymes that consume ion gradients, and the role of both ATP and ion gradients as potential energy reservoirs for driving cellular function. The case studies also represent the variety of experimental origins and outcomes: theory-driven and serendipitous discovery, falsification and immunity to falsification, corroboration, controversy, consensus formation, and the attainment of conceptual unity through the reductionist program. The goals of this project include drawing to the attention of historians and philosophers of science such ordinary practice, and illustrating to working scientists some practical and theoretical aspects of their toils--including causes and consequences of success and failure in rival research programs.